Monofluoro Reagents for Organic Synthesis

The Synthetic Organic Program supports the work of Dr. Patrick. Patrick, professor of chemistry at SIUE, is carrying out research on the project, "Monofluoro Reagents for Organic Synthesis". The replacement of a hydrogen atom by a fluorine can have remarkable effects on the chemical and biological behavior of the molecule. Methods for carrying out these changes have been difficult. Patrick is developing new ways to incorporate the fluorine atom into organic molecules. Patrick is developing several new reagents for incorporating fluorine into relatively complex organic molecules. This is accomplished primarily through the preparation of unique fluorinated synthons that can find general application in the development of synthetic strategies. Specific target intermediates include fluorinated oxazines and oxazolines, masked carbonyl compounds that contain fluorine, and a fluorinated butadiene. Successful completion of the preparation of these targets will provide a supply of general and versatile reagents that can be applied to the synthesis of fluorinated analogs of natural products.